Theory of Fractional Statistics

9413057 Theoretical and computational research will be conducted on the physics of fractional statistics. The work builds on previous research on anyon superconductivity and contributes to the physics of the fractional quantum Hall effect. Three specific projects are proposed: (1) A quantum Monte Carlo study of the metal-insulator transition for anyons; (2) The physics of a new quantum number which is a measure of Hilbert space exclusion, that is, a generalization of the Pauli Principle; (3) The application of a dissipative mapping to the problem of stacking polytypes in metals and insulators. %%% This theoretical research will focus on the study of particles with fractional statistics, that is, particles unlike the common ones found in the real world. However, there is evidence that these particles exist under special circumstances and may also underlay other more common phenomena. This research will study the foundations of these particles and study a number of their possible manifestations. Additional effort will also be expended in investigating various complex materials systems using a new technique derived from nonlinear dynamics.